Stability of the Human Immunodeficiency Virus in Suspensions of Residues Produced During Treatment of Wastewater

This is an award to support an exploratory study of the survival characteristics of the Human Immunodeficiency Virus (HIV) under conditions that may affect the engineering design of facilities for treatment of wastes from facilities serving infected individuals. This project involves determination of the adequacy of standard methods for recovery of HIV from mixtures with wastes from non- infected individuals, potential modification of standard procedures, and survival characteristics of that virus as a function of time under conditions of exposure typical of waste collection and management systems. This project was initiated under the National Science Foundation's Program of Expedited Awards for Novel Research, NSF 87-90. Results are expected to provide knowledge regarding the direction of subsequent research that would address the engineering design implications of the results of this project.